Some Problems for Bi-Harmonic Maps, Blow-Up Analysis for Some Variational Problems

Award: DMS-9970549
Principal Investigator: Changyou Wang

Works on this project concerns several analytic problems arising
from the area of geometric variational calculus. It contains
three parts. In the first part, we try to study problems related
to critical points (or bi-harmonic maps) for Hessian energy
functionals of maps between manifolds, such as partial regularity
for minimizing bi-harmonic maps, existence of bi-harmonic map
representations among homotopy classes from four dimensional
manifolds, and heat evolutions of bi-harmonic maps from four
dimensional domains. In the second part, we try to develop
blow-up analysis for flows of stationary harmonic maps, flows of
Ginzburg-Landau systems, stable-stationary harmonic maps, and
energy concentrations and bubbling phenomena for entire solutions
to harmonic maps in three dimensional Euclidean space. Here we
try to use geometric measure theory and PDE to understand the
defect measures associated with these objects. In the last part,
the PI propose to study lower bound for p-energy and its
applications to possible dynamics of singularity for p-harmonic
map flows from two dimensional domains to the circle, as p tends
to two. We hope to build connections to vortex dynamics of
complex Ginzburg-Landau equations in two dimension.

Nonlinear partial differential equations are basic tools to
describe problems arising from both differential geometry and
physics. Harmonic maps model optimal objects with respect to
physically natural energy functionals in families of objects
satisfying common constraints. Heat flows of harmonic maps study
the long-time dynamical behavior of objects in such families. The
study will enhance our understanding of these maps, improve
methods to control the singular sets, and predict singular
behavior of solutions to these problems. Bi-harmonic maps are
natural in the study of both fourth order nonlinear PDE and
higher dimensional conformal geometry. Results here will have
potential applications to differential geometry, material science
including liquid crystals, elasticity/plasticity, and fluid
mechanics.